Pier Replacement at Duke Marine Laboratory

This project will replace a wooden pier and its outdated electrical services at the Duke Marine Laboratory which provides home port facilities for the NSF-owned R/V CAPE HATTERAS. The present pier, built in the early 1960's has deteriorated to the point that it is unsafe for vehicles that must use it to service the ship. The cost will be shared with Duke University. The University which has already funded an engineering study, will be responsible for the south pier and trestle which services small boats, and NSF funds will be used for a new concrete north pier and trestle plus electrical service improvements. The new pier will significantly reduce maintenance costs and should see many years of service.